Significance and Controls of Methane Oxidation

Methane oxidation affects carbon and energy cycling in wetlands by consuming the major reduced end product of anaerobic metabolism. In so doing, methane oxidation couples oxic and anoxic processes within the ecosystem. To the extent that this coupling is inefficient or "leaky", methane can escape into the atmosphere. The magnitude of this flux serves to link specific ecosystems, e.g., wetlands, with global-scale processes since methane plays a key role in atmospheric chemistry and the planetary heat budget. However, in spite of the importance of methane oxidation and the significance of wetlands as methane sources, relatively little is known about spatial and temporal variability or controls of the process. Initial studies in several diverse wetlands have identified light regimes, benthic photosynthesis, water table dynamics and plant-bacterial associations as some of the most important factors controlling the rates and extent of methane oxidation. A more complete analysis of these and other parameters will provide information necessary for predicting the importance and magnitude of methane fluxes from various wetlands as well as provide the necessary insights for predicting the response of methane oxidation and emission to changing climatic regimes.